Large Scale Random Systems: Stochastic Partial Differential Equations and Random Matrix Theory

The investigator studies two topics: statistical
hydrodynamics, and various combinatorial models with their
connections to random matrix theory. With regard to infinite
dimensional stochastic equations and statistical hydrodynamics,
the investigator focuses on three questions. The first concerns
the structure of typical solutions for nonlinear stochastic
partial differential equations such as the two-dimensional
stochastic Navier-Stokes equations and the stochastic Burgers
equation. The second concerns the uniqueness of steady states for
inviscid randomly forced equations on unbounded domains. The
third concerns the mechanism of energy transfer from high to low
modes in stochastically forced formally conservative systems. For
each of these questions new analytic approaches and new phenomena
have been described. A goal of this work is to more completely
analyze these phenomena. In combinatorics, growth models, and
random matrix theory the investigator studies basic questions of
Gaussian Orthogonal Ensemble (GOE) random matrix theory, focusing
on the connection of symmetrized combinatorial models to limiting
distributions of the Gaussian orthogonal ensemble. The questions
considered include problems of random tiling that arise in
physics, polynuclear growth models that arise in the study of
random interfaces, and percolation models that arise in condensed
matter physics and electrical engineering. A goal of the work is
to prove new central limit theorems in the context of GOE random
matrix theory.

Understanding the small-scale structure of stochastically
forced hydrodynamic equations is related to turbulence theory and
statistical mechanics. The small-scale structure of solutions is
of both theoretical and experimental importance. It is this
structure that matters in turbulent flows arising in many concrete
problems of aerodynamics and fluid mechanics. The particular
questiuons studied here contribute to the current understanding of
this small-scale structure. It has recently become clear that
random matrix theory techniques answer a wide range of questions
in a variety of seemingly unrelated fields. Essentially, random
matrix theory affords a model that captures the fluctuations of
many distinct processes. The questions studied in this project
widen this class of problems and processes and improve the current
understanding of the various phenomena that lead to random matrix
statistics.